ITR: RONEE - An Integrated Engineering Method and Tool Environment for Reliable Object-oriented Real-time Distributed Systems

Two major goals are:
(1) To establish a new-generation integrated methodology for real- time (RT) distributed programming and software engineering on the basis of the recent developments in object-oriented (OO) RT
distributed programming; and
(2) To develop an integrated tool-set named the Real-time Object Network Engineering Environment (RONEE), which will bring about a quantum jump in the system engineers' productivity in
constructing distributed RT application systems.

The research base of this multi-nation researcher team includes (1) a new high-level style of RT OO distributed programming called the TMO (Time-triggered Message-triggered Object) programming, (2)
middleware supporting RT objects such as TAO object request broker and TMOSM, (3) OS and middleware support for fault-tolerant RT distributed computing such as ROAFTS and TTP OS, (4) frameworks
such as RT UML and ACSR for formal specification, etc.

Specific research tasks include integrations of cornerstone
techniques and development of RONEE for:
(1) High-level distributed RT programming based on C++ and JAVA;
(2) Formal multi-level specification of requirements and designs;
(3) Efficient execution of RT objects, stationary and mobile;
(4) Fault-tolerant computing with distributed RT objects;
(5) Verification of timing designs;
(6) Distributed RT simulation and 3D visualization of application
environments to support software validation.